U.S. Participation in GCTE Focus 3 Conference "Food & Forestry-Global Change and Global Challenges" (Sept. 20-23, 1999) to be held at the University of Reading, UK

Abstract

Scherm
99-09831

U.S. Participation in GCTE Focus 3 Conference "Food and Forestry - Global Change and Global Challenge"

This project will support U.S. participation by four senior scientists and three early-career scientists in workshops associated with the Global Change and Terrestrial Ecosystems (GCTE) conference on food and forestry to be held in Reading, England on 20-23 September 1999. The workshops are entitled:
o Effect of agricultural intensification on trace gas emissions
o Linking ecosystem and economic models at regional scale
o Developing or modifying crop production models to simulate losses due to pests and diseases under global change.
The conference objective is to develop research agendas for two broad areas: 1) the environmental consequence of increasing food, fiber and fuel supply, and 2) the affect of climate variability on production systems and environmental degradation. In particular, the organizers wish to bring a more effective focus on the interactions between ecosystems - particularly agroecosystems - and elements of global change.